Research Experiences for Undergraduates in Chemistry at the University of Wyoming

This Chemistry Division award supports the continuation of a Research Experiences for Undergraduates (REU) site at the University of Wyoming. Dean Roddick is the site's Program Director and there will be available 11 faculty as REU student mentors. Over the award period (2001-2003), the students will be supported each summer in a ten-week program. Students will be recruited primarily in the West from institutions that do not have Ph.D. programs in chemistry, as well as Wyoming Community Colleges. A particular emphasis will be to seek American Indian students. All students will participate in an Undergraduate Research Symposium during the final week by giving a 15 minute oral presentation on their research.